New Models and Algorithms in Image Processing with Partial Differential Equations

The PI, together with his collaborators and students, will develop new
models and numerical algorithms for the solution of a number of
fundamental problems in image processing and computer vision. The
models will be based on the calculus of variations and partial
differential equations (PDE) that describe curve and surface
evolutions. A main goal of the project will be to devise new models
that incorporate prior shape information into existing variational
image segmentation techniques such as the Mumford-Shah model and its
variants. The new models will be designed to find in given images
objects resembling a specified shape regardless of the objects'
location and orientation in the image. In addition, they will have
convenient numerical implementations using techniques that have already
proven their utility in related vision applications, such as the level
set method. A second area of research will be to develop novel,
efficient numerical algorithms for the solution of PDE that arise in a
number of computer vision models and in other fields such as material
science. Specifically, the investigator will explore new computational
techniques for the solution of high order PDE that describe geometric
motion of interfaces, such as the Willmore flow and motion by surface
diffusion. These evolutions are computationally very expensive using
current techniques. The new approach will be to reduce the computation
of these motions to alternating simple operations for which efficient
algorithms are already available. Also in this vein, the project will
develop new numerical algorithms inspired by models and techniques in
image processing for the computation of energy driven dynamics of
multiple phases and junctions.

Image segmentation is a fundamental procedure of computer vision. It is
a necessary preliminary step whenever useful information is to be
extracted from digital images automatically. Its goal is to identify
parts of the image that belong to distinct objects, often without
knowing what objects might be present in the image. In many practical
applications, however, a specific object of known shape is sought in
the images. For example, in aerial imagery, the object of interest
might be a certain vehicle that has a distinctive outline. Or, in a
medical application, it might be desired to identify automatically the
individual vertebrae in x-ray images of the spine. It such settings, it
would help the success rate of the segmentation procedure if the
algorithms could be made aware of what is being sought. This project
will develop models and numerical techniques that incorporate prior
shape information about objects of interest into the segmentation
process, thereby leading to better segmentation methods.